NSF Traineeships in Natural Language Human-Computer Inter- faces (TARGETED AREA) Computer Science: Human-computer Interface

9354869 Carberry We propose a training program that will produce five new PhD's in the targeted area of Computer Science: Human-computer interface, with an emphasis on the development of an intelligent natural language communication system. Our proposed program will involve 1) cross-disciplinary study among computer science, linguistics, and psychology, 2) industrial internships to introduce students to technology transfer and provide them with application-oriented experience, 3) international research opportunities that will expose the trainees to international researchers and to the technology being developed through European Esprit projects, 4) classroom teaching experience to prepare the trainees for educating future researchers, 5) cost-sharing by the Department of Computer Science at the University of Delaware and industrial organizations, and 6) an aggressive recruiting effort and a detailed retention plan. ***